ICLS 2006: Making a Difference, 2006 in Indiana

This proposal will support graduate students and new researcher to participate in the International Conference of the Learning Society in Indiana. Four activities will be covered by the grant

, Methods Workshops for new researchers
. Travel and registration for junior researchers
. Travel and registration support for doctoral students
. Doctoral Consortium

In addition, an evaluation of the project will be conducted.